Intraseasonal Variability of Atmospheric Large-Scale Environment for Deep Convection in the Western Pacific

Abstract ATM-9320193 Zhang, Chidong University of Washington Title: Intraseasonal Variability of Atmospheric Large-Scale Environment for Deep Convection in the Western Pacific Case and composite studies are proposed to investigate three events of the tropical intraseasonal oscillation (TIO) during the Intensive Observing Period (IOP) of the Tropical Ocean Global Atmosphere (TOGA) Coupled Ocean Atmosphere Response Experiment (COARE). Data collected during the COARE IOP (1 November 1992 - 28 February 1993) from the Tropical Atmosphere Ocean (TAO) mooring arrays, ships, surface and sounding stations, and Japanese Geosynchronic Meteorology Satellite (GMS), and wind analyses from the European Centre for Medium Range Weather Forecast (ECMWF) will be analyzed. The proposed research will focus on the variability of large-scale atmospheric environment in which deep convection is promoted or surpassed on the intraseasonal time scales. Specifically, the proposed project will: (i) Detect the intraseasonal variability of surface wind and convergence, surface/boundary-layer thermal conditions (including surface turbulent heat fluxes, humidity and temperature, moist static energy, etc.), vertical thermodynamic and dynamic structures of the atmosphere, and surface precipitation; (ii) Explore intraseasonal coherent signatures of these variables with tropospheric winds and satellite cloud entitles subdivided by areal extent and cloud-top height. Through the case studies of the three TIO events during the COARE IOP, the PI and the co-investigators of the project will attempt a synthesized view of the large-scale dynamic and thermodynamic structures of the TIO. The synthesized view of the TIO will include the spatial structures, evolutions, and interrelationships of three-dimensional wind field, surface and boundary-layer thermal conditions, atmospheric vertical structures, convective cloud populations and organization, precipitation, and characteri stics of air-sea interactions associated with the TIO. The results from this project will provide necessary information for enhancement of our overall understanding of the TIO and for improvement and validation of theories and numerical modeling of the TIO.